Mathematical Sciences Computing Research Environment

9406193 Rocke The Graduate School of Management at the University of California, Davis will purchase two workstations that will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several projects, including in particular: 1.) Detection of Multivariate Outliers; 2.) Robust Model Selection; and 3.) Tabu Search and Chunking.